Age and Growth of Antarctic Fishes

Fish are a major component of the antarctic marine community. Knowledge of their age and growth is essential to the understanding of the structure and functions of the ecosystem. This supplemental award to Dr. Targett presents a unique opportunity to increase information on one aspect of growth: the relationship among feeding activity, temperature, and photoperiod. Thirty fish collected in the antarctic were transported to Delaware, where growth experiments have been carried out for sixteen months. These are the first fish successfully transported to a U.S. laboratory. The precision of temperature control during laboratory experimentation available in Delaware is superior to that available in the antarctic. Research will focus on the variation in feeding rate, feeding magnitude and changes in growth efficiency observed between winter and summer. Support is recommended.